An Analysis of Upper Paleolithic Materials

Dr. White will examine collections of Upper Paleolithic objects housed in museums in Europe and Russia. In particular, he will focus on stone, bone and ivory beads and pendants which served as body ornaments. Objects will be drawn and photographed, and their form and method of manufacture described. Many of these materials are undescribed, and this is the first time that such ornaments will be treated as a discrete set of data and analyzed as such. With this information, it will be possible to examine the question of ethnic differentiation across this wide geographical area and determine the extent to which discrete cultural boundaries, which characterize all modern groups, existed at this early date. What makes these collections important is that they are associated with the earliest anatomically modern humans to appear in Europe and the first to engage in artistic practices. Today, art is a universal trait, a hallmark of modern human societies. Extremely little is known about early Upper Paleolithic cultural practices and social organization, and this project will add significantly to our limited store of information. This research is important because it will increase our understanding of the origins of human culture. It is also valuable because it will make use of an underutilized resource. The materials from many of these sites have never been properly analyzed and published. Today these valuable data, often obtained at great cost, are ignored. Through Dr. White's work, the potential of these materials will be realized.